Workshop on 'Frontiers in Electronics' (WOFE-02) being held January 6-11, 2002 at Colony Cove, St. Croix, US VIrgin Islands.

This workshop will bring together leading scientists and engineers who are at the frontiers of electronic device and circuit research and development. Low power digital electronics, microwave power circuits, wide band gap semiconductors, nanotechnology, terahertz technology, and optoelectronics have become the foundation of today's electronics technology.

This advanced workshop will be a special forum to gather some of the most creative minds and leading experts from academia, industry, and government agencies, and to review the most recent and exciting breakthroughs in the fields, the underlying physical mechanisms that link these advancements, and to exchange views on future trends and directions, the market pulls and the necessary policy and infrastructure changes.